Conference: 2026 University of Michigan Random Matrix Theory Summer School

From June 15–26, 2026, the University of Michigan (U-M) will host a two-week summer school in random matrix theory, bringing together 55–60 graduate students and early-career researchers to learn from leading experts in the field. Random matrix theory is a mathematical discipline with far-reaching applications in a wide range of branches of science, engineering, and mathematics, from machine learning and biochemistry to number theory and theoretical physics. By training the next generation of researchers and emphasizing collaboration through daily group problem-solving sessions, the 2026 U-M Random Matrix Theory Summer School (RMTSS) will contribute to the important tasks of advancing and expanding the field and cultivating a healthy, supportive research culture for budding scholars. The 2026 U-M RMTSS will be the fifth summer school of its kind, following highly successful predecessors in 2016, 2018, 2022, and 2024.

The 2026 U-M RMTSS will feature four one-week lecture series—two per week—delivered by leading random matrix theory researchers. Each lecture series will explore a different aspect of random matrix theory, enabling students to learn techniques outside their specialties and acquire the background necessary to understand how and when to apply these techniques to new problems. In addition to the lectures, participants will engage in intensive daily group problem-solving sessions designed to deepen understanding through active engagement and to foster collaboration among participants. The summer school's website is https://sites.google.com/umich.edu/rmtschool/home.